SGER: Gradual Compilers

CCR-9987458
Abstract:

With the increasing demands of users for ever more complex features in
their systems, interfaces to these systems necessarily also become
complex. At some point, the interfaces approximate a programming
language, and the system can reasonably use a compiler to efficiently
handle the users' directions. We thus expect that compiler-writing
technology will increasingly be demanded of software engineering
professionals. Unfortunately, compilers are often large, mysterious
programs, and compiler-writing somewhat of a black art.

We are developing a new approach to the development and exposition of
compilers for mostly functional languages. Courses on compilers are
generally centered around an extensive project through which a
compiler is developed. Some attempt is often made to divide the
compiler into phases. Traditionally, however, the early phases merely
cover scanning and parsing and most of the real work is left as a
single task. This makes compiler courses either difficult, if
students are left to deal with this problem on their own, or
contrived, if they are given substantial amounts of help from their
instructor. The primary advantage of our approach is that students
can build a compiler in incremental stages and understand how each
stage contributes to the project. Thus, at any point in time, the
students are only concerned with a single aspect of the target
architecture. In this way, they gain an understanding of how the
source and target architectures relate to each other and no longer
view them as totally disparate worlds. An additional advantage of our
approach is that instructions at different levels can be interleaved,
so that transformations can be written and debugged for one language
form at a time. All of this will make compiler-writing far less
mysterious and make compiler courses accessible to many more students.

We are submitting this request under Small Grants for Exploratory
Research because we wish to pursue this research immediately. This
new approach, if further developed, could greatly affect Indiana
University's undergraduate compiler course this spring. We will also
make the results of our efforts available to the larger educational
community through submissions to education-oriented conferences and/or
the publication of relevant texts.

Although our primary motivation at this point is educational, the
benefits of our approach are likely to range much further. They
should include the ability to reuse components in compilers with a
different source or target language, to the point where writing a
compiler involves plotting a course through a variety of intermediate
languages or programming styles or architectures. Then, a change to
any one architecture will have minimal impact on the family of
compilers. A second advantage is that optimizations can be added
individually, at the highest appropriate level. Finally, support for
the interleaving of instructions at different levels should make the
development of compilers much less expensive and error-prone. It
should also help to improve intuitions and understanding of
issues of just-in-time compililation that have become pressing with
the increased popularity of the Java programming language.